A New Systems View of Electronics for 2010

This project is developing the concept that technician education in electronics should be systems-based rather than component-based. It is developing curriculum that reflects this change in the way technicians interact with electronics. The project is:
1. Revising curricular materials and six courses, creating new materials for instructors, developing new materials for student learning and enrichment, and providing guidance for faculty to use the emerging systems view of electronics;
2. Developing a complete web-based delivery system for faculty and students for the resources associated with the Systems View for Electronics Technology;
3. Increasing enrollments in electronics technology programs by engaging the interest of both current and potential students and working adults in the real world of electronics; and
4. Ensuring the curriculum addresses the needs of industry by incorporating the most recent electronic methods, circuits, systems and practices involving simulations and online laboratories.

Massachusetts Institute of Technology is contributing its experience developing iLabs, real laboratory experiences for students accessing equipment and educational materials through the internet.